Support of the 2005 Particle Accelerator Conference; Knoxville, TN; May 16-20, 2005

The proposal requests funding for partial support of the 2005 Particle Accelerator Conference (PAC05) to be held at the Knoxville Convention Center in Knoxville, Tennessee from May 16-20, 2005. This is the 21st in a biennial series of conferences that provides a leading forum for the exchange of information and new ideas in particle accelerator science and technology. The funds will be used to support the travel expenses for young researchers in the field, namely, students and postdocs from U.S institutions.